The Human dUTPase: Preliminary Analysis of the Genomic Structure and Protein Product(s)

The human deoxy-uridine triphosphate pyrophosphatase gene will be isolated by cDNA hybridization and then characterized. Additionally, the protein product will be analyzed for possible phosphorylated isoforms and molecular weights and isoelectric points determined. The expression of the gene in peripheral lymphocytes as a function of the cell cycle will also be measured. %%% The dUTPase enzyme has been associated with a number of cellular processes: DNA replication, cell replication and cell death. An understanding of gene structure and expression as well as more insight into the structure as related to function of the encoded protein in human cells will be fundamental to any understanding of human cell viability.